Nonrelativistic Multichannel Quantum Scattering Theory

This work will continue both formal and numerical theoretical work on coupled integral differential equations which is aimed eventually at describing nuclear reactions involving more than three particles.